Genetic Analysis of Inositol Metabolism in Yeast

This is a five year Young Investigator Award. The mechanisms that enable eukaryotic cells to control the synthesis of membrane lipids in coordination with ongoing membrane biogenesis are complex and, to a great extent, unknown. What is clear is that the phospholipid precursor inositol plays a critical role. Inositol containing phospholipids have been implicated in metabolic signalling process that act to control cell growth and proliferation in higher eukaryotes. An extensive analysis of inositol transport, and the role of transport in the coordinated regulation of phospholipid biosynthesis will be conducted in the unicellular eukaryotic organism, Saccharomyces cerevisiae. The studies will involve the genetic and biochemical characterization of inositol transport and regulation of transport in mutant and wild type strains of yeast. Strains harboring well-characterized regulatory mutations, in addition to the new mutants, will be used to identify the role of inositol transport in the coordinated regulation of phospholipid biosynthesis. The mutants will also be used to facilitate the cloning of structural genes encoding the inositol transport. The cloned genes will be employed in molecular studies, including DNA sequence analysis and analysis of transcriptional regulation in response to exogenous precursors, such as inositol and choline. It is expected that the proposed analysis will define a complex regulatory circuitry which coordinates the uptake of inositol with the continuous proportional synthesis of the phospholipids in the growing cell.